Purchase of a High Perfomance Workstation

John Z. H. Zhang at the Department of Chemistry, New York University, is supported by a grant from the Theoretical and Computational Chemistry Program to obtain a high performance workstation. This workstation will be used to perform numerically intensive computations related to Prof. Zhang's research program on the study of the dynamic properties of molecular processes. Time dependent quantum dynamics calculations will be performed to study the reaction of small molecules on metal surfaces. The workstation will also be used to perform high-dimensional calculations of the vibrational spectrum and the dissociation dynamics of hydrogen bonded clusters like the HF and HCl dimers.